Mathematical Sciences: Joint Summer Research Conferences in the Mathematical Sciences, 1990-1993

This project will support the Joint Summer Research Conferences in the Mathematical Sciences, administered by the American Mathematical Society, the Society for Industrial and Applied Mathematics, and the Institute for Mathematical Statistics. Between six and ten one or two-week conferences have been held annually since 1982 on a wide range of mathematical topics. The 1990 Summer Research Conferences will be held at the University of Massachusetts, Amherst on the following topics: (1) Logic and Local Fields, (2) The Schottky Problem, (3) Deformation Theory of Algebras and Quantization with Applications to Physics, (4) Strategies for Sequential Search and Selection in Real-Time, (5) Probability Models and Statistical Analyses for Ranking Data, and (6) Inverse Scattering and Applications.